A Computational Framework for Reduced Feedback Control Design for Spatially Distributed Systems

0072629
King

This goal of this project is to develop a framework that can be used to
design spatially distributed control systems. Specifically, the outcome of
this project is to provide a methodology to optimally place sensors and
actuators and to construct practical reduced order controllers. The
approach is based on a unique combination of computational mathematics
and distributed parameter control theory. The framework is based on an
integral representation of the optimal feedback control that arises from the
solution of the infinite dimensional control problem. Computation of the
kernel of the integral (feedback functional gain) may be accomplished by
solving a numerical approximation of the infinite dimensional algebraic
Riccati equation. However, this approach is intractable for even the two
dimensional heat equation on a fairly coarse grid. The approach proposed
herein is based on the use of computational methods to directly solve
Chandrasekhar partial integro-differential equations for functional gains.
Recent results on the smoothness and support of these functional gains can
then be exploited to optimally place sensors and actuators. Moreover,
initial studies show how the gains can also be used to design robust low-
order compensators.

The motivation for this work comes from the need to have efficient,
practical controllers for complicated physical systems. The focus of the
proposal is the development of an approach that is applicable to a wide
variety of areas ranging from materials processing to flow control. In
applications from such areas, there are several issues of primary
importance that must be addressed. Among these are where to place
sensors to obtain accurate measurements to be used by the controller, what
to measure, where to place actuators (which implement the control), and
how to design the controller so that the system is controller in real-time.
Typically, the issues with respect to sensors and actuators are solved
through engineering intuition. However, the mathematical framework that
we propose gives specific answers to these questions. Moreover, it
provides motivation for real-time control which is nearly optimal (in the
sense that the design comes from the solution to a mathematical
optimization problem) and is robust, which means that it is effective in the
presence of disturbances, or dynamics which may have been neglected in
designing the controller. The potential benefits of this work are enormous.
It would be applicable to complicated (and varied) problems such as
stabilizing vibrations arising from shuttle docking at the space station,
reduction of drag in aerospace vehicles, and optimal control of
semiconductor manufacturing. It would provide a systematic approach to
reduced order controller design, eliminating much of the guesswork that
currently takes place.